University of Nebraska RSCL Planning Grant for I/UCRC

An Industry/University Cooperative Research Centers planning meeting has been awarded to determine the feasibility of the University of Nebraska joining the existing Center for Engineering Logistics and Distribution. The focus of the research site will be in the area of Radio Frequency Identification. This expands the current research agenda of the center and addresses a current major new interest of a number of companies.